Supplemental Planning project

The supplement will allow the college to examine its STEM program
specifically focusing on Mathematics 120 (MATH 120). This course is the lower level remedial
math course. Available statistics show more than half of all incoming students need this course
and of these, half will fail the first attempt. For the CCCC students, this course is truly the
critical gateway. To graduate, transfer to a four year college, and enter a STEM career, the
student must succeed in this course.
Through this grant, the college will pilot innovations in its math instructional delivery
and identify critical changes needed in the infrastructure of the college to foster student success.
The college fully expects the lessons learned in this project will have widespread application to
first other STEM courses, but ultimately to all courses offered by CCCC. This is in keeping with
the college's belief the STEM courses are a critical core element of the college. The college will
use the prior three years as baseline data for purposes of comparing the test areas of this grant.